Mathematical Sciences Computing Research Enviornments

The Statistics Department at Purdue University will purchase a high speed file server and 10 attached X-windows terminals to be used for research in Statistics, including these five research projects: 1. Numerical Integration and Interactive Analysis for Bayesian Statistics James O. Berger and Herman Rubin 2. Bayesian Function Estimation James O. Berger, Chong Gu, Herman Rubin and William J. Studden 3. Interaction Splines and Multiresolution Regression Splines Chong Gu and William J. Studden 4. Statistical Inference for Selection and Ranking Problems Shanti S. Gupta 5. Resampling/Classification Dimitris N. Politis and Stephen M. Samuels//